Industry Internship: Tolerance Study on Automotive Part Assembly

The objective of this research is to investigate a mathematical tolerance allocation approach for design based on desired product specification and known manufacturing process variability. The allocation criteria will be compared to the tolerance analysis based on Monte Carlo statistical methods used in the VSA (Variation Simulation Analysis) commercial package. Once it is understood how the distributions are combined, a formal tolerance allocation methodology will then be completed. This approach is a more empirical approach of pre-determining allowable part tolerance as opposed to the "what-if" tests conducted on the VSA software